International Travel Award to Attend the Eighth Inter- national Meeting in Radiation Processing, September 13-18, 1992 in Beijing, China

This is an award to provide support for international travel by Anthony J. Berejka who will participate in the Eighth International Meeting on Radiation Processing. This meeting to be in Beijing, China was organized in cooperation with the International Atomic Energy Association. It will be held from September 13 - 18 at the Fragrant Hill Hotel in Beijing. He will also visit Shanghai University of Science and Technology and the Japanese Atomic Energy Research Institute in Tokyo. It is expected that support of this applicant's participation in this conference will be of assistance in coordination of research supported by NSF relating to uses of ionizing radiation in environmental engineering practice.